SGER: Three Basic Dichotomies of Social Cognition

Three studies will use functional magnetic resonance imaging (fMRI) to assess the neuroanatomical circuitry involved in three social cognitive domains. In one study, the neuroanatomical of schematic social information will be examined. In a second study, the neuroanatomical differences associated with high-level abstract understanding versus low-level concrete understanding of events derived from action identification theory will be investigated. The third study will focus on the neuroanatomical correlates of outcome framing in terms of gains versus losses. This is a small grant for exploratory research aimed at establishing the utility of a cognitive neuroscience analysis of social cognitive phenomena.